REU: Genetic Coordination of Insect Life Histories

All organisms possess traits that affect their ability to survive and reproduce. No trait exists in isolation from the whole organism; it is also true, however, that the overall life- cycle strategy of a species or population is comprised of some traits that interact and some that do not. Dr. Bradshaw has proposed that insect life cycles are composed of genetically coordinated traits (tactics) that may themselves be genetically coordinated. He has also argued that the two fundamental components of an insect's life cycle are (1) direct development under favorable conditions and (2) dormancy or migration under unfavorable conditions. Further, Dr. Bradshaw has predicted situations under which these fundamental components should, themselves, be coordinated or free to evolve independently. To test these predictions, Dr. Bradshaw will examine the coordination of life-cycle traits in a mosquito that develops only within the water-filled leaves of the carnivorous purple pitcher plant from the Gulf of Mexico to north-central Canada. The pitcher-plant mosquito has invaded North America from South America, probably after the last ice age, and has evolved from south to north. In studying this mosquito, Dr. Bradshaw is examining the invasion and adaptation of a tropical mosquito into the temperate zone of the United States. The tropical yellow- fever mosquito presently is established in our Gulf Coast States and the Asian tiger mosquito, that can carry dengue fever and encephalitis viruses, has recently invaded southern and eastern United States. The results of this research will thus have direct implications on the constraints or opportunities that tropical mosquitoes may have in successfully spreading to more northern climates in our country.